MRI: Acquisition of a 400 MHz Nuclear Magnetic Resonance Spectrometer

With support from the Major Research Instrumentation (MRI) Program, the Department of Chemistry at Indiana State University will acquire a 400 MHz nuclear magnetic resonance (NMR) Spectrometer. Faculty at Rose-Hulman Institute of Technology and Saint Mary-of-the-Woods College will also carry out research using the NMR. This equipment will enable researchers to carry out studies on a) Enantioselective Swern Oxidation of Alcohols; b) Development of Tripodal Amine Ligands for Enantioselective Catalysis; c) Multivalent Ligands for Nicotinic Receptors; d) Bioassay-Guided Isolation, Structure Elucidation, and Synthesis of Neuroactive Compounds; e) Sodium Carbonate/Percarbonate in the Baeyer-Villiger Oxidation; f) Synthesis and Immunological Evaluation of Prenylated Proteins and Carbohydrates; g) New Dinuclear Molybdenum-thiolate Compounds with Multiple Oxidation States; h) Bacterial Classification by Lipid Composition Analysis; i) Total Synthesis of Sattabacin/Sattazolin; and j) Structure and Dynamics of Polycarbonates.

Nuclear Magnetic Resonance (NMR) spectroscopy is one of the most powerful tools available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometers is essential to chemists who are carrying out frontier research. The results from these NMR studies will have an impact in medicinal chemistry, biochemistry and synthetic chemistry.